Exploratory: Activate Computational Thinking (ACT)

The Activate Computational Thinking (ACT) exploratory research project of California State University-San Marcos is a two-year professional development model to support a cohort of 16 middle school science teachers of underrepresented students as the teachers gain computational thinking (CT) competencies and design and teach CT-integrated classroom science lessons that will provide students with CT learning experiences.

The design of the ACT professional development (PD) supports an iterative process where teacher training is followed by the cycle of design, field-test, and refinement of CT lessons. The overall PD is then refined before the next training begins. Close monitoring of teacher and student responses to project activities will show how (1) teachers gain understanding and knowledge of CT concepts and capabilities; (2) teachers design science lesson plans that integrate CT learning experiences; (3) teachers implement science CT-integrated science lessons; and (4) students exhibit the use of CT skills in the course of completing their class assignments. Training will occur over two years in two summers and after school. The project combines participant learning and team teaching of a cohort of middle school students by trained participants during the first summer term. This will be followed by yearly training and mentoring. Teachers will produce science lesson plans that incorporate computational thinking.

The project will contribute to the understanding of what it takes to empower middle school science teachers as designers of CT learning opportunities for students from underrepresented groups. With an estimate of 90 students per middle school teacher per year, the project is expected to impact more than 2,800 students as the 16 project teachers implement CT-integrated science lessons into classroom activities over two years.